Mathematical Sciences: Semiparametric Models and Empirical Processes

This project contains two major research themes: semiparametric models and empirical processes. Specific topics include: (1) information bounds for semiparametric models; (2) efficiency calculations for estimation problems involving althernating projection (ACE and MAP) methods; (3) construction of efficient estimates in semiparametric models including transformation models, constrained models involving infinitely many constraints, and semiparametric regression models; (4) uniformity in P of the convergence of empirical processes; (5) asympotic optimality of empirical measures; (6) preservation of the Donsker class property of a collection of functions F under projection onto a subspace in L2; (7) symmetric and quadratic statistics based on empirical measures. Research to be performed under this project is in the area of statistics.